Symplectic Geometry and Dynamics

Abstract

Award: DMS-1104470
Principal Investigator: Helmut Hofer

The first subproject will be concerned with the completion of
symplectic field theory (SFT). This is currently the most
general and most comprehensive theory of symplectic
invariants. There are three ingredients to this project, namely
the polyfold Fredholm theory, the scale-smooth analysis and the
formulation of SFT as an algebraic presentation of the solution
count of a polyfold Fredholm problem with operations. The second
subproject, a by-product of the polyfold Fredholm theory,
attempts to construct a homology theory based on equivalence
classes of Fredholm problems. The resulting advantage would be
that transversality issues in studying nonlinear partial
differential equations would actually not occur explicitly. They
would be hidden in the (one-time) proof that the new homology
theory of a space would be naturally isomorphic to the rational
singular homology. A third subproject is concerned with finite
energy foliations, either in the context of area-preserving
disk-maps or the restricted planar three-body problem. Finite
energy foliations were introduced by the PI and his collaborators
and are an important tool in the study of the dynamics of
low-dimensional Hamiltonian systems. The restricted circular
planar three-body problem is not only interesting from a purely
academic viewpoint, but is also used in the orbit design for
scientific space missions. In certain regimes of the Jacobi
energy, finite energy foliations allow to reduce the dynamics of
the restricted three-body problem to that of the dynamics of an
area-preserving disk-map. Then again the same theory facilitates
the understanding of the long-term behavior of iterated
area-preserving disk maps. The project will study the
relationship between the theory of finite energy foliations, a
symplectic construction, and core dynamical systems notions like
entropy.

It is a surprising fact that many physical systems evolving in
time, allow a description as a Hamiltonian system. Systems of
this kind describe the flow of an incompressible ideal fluid, the
movement of a satellite under the gravitational forces of
celestial bodies, or the movement of charged particles in a
magnetic field. Hamiltonian systems are a very particular class
of dynamical systems, which can be studied not only by the
methods from dynamical systems theory, but also by a more exotic
kind of geometry called symplectic geometry. This is a geometry
based on the notion of area, in contrast to usual geometries,
which have length and distance as their fundamental
notions. Recent advances in this field already found some
practical uses. For example, this novel point of view has been
used in accelerator physics in algorithms controlling and
insuring stability of a beam of particles and called symplectic
tracking. It is the explicit purpose of this research to
integrate the approaches to Hamiltonian systems coming from these
two different perspectives. This should result in new methods,
which should make it possible to attack problems, which so far
seemed unreachable. For example it seems long term be feasible to
use the new methods to develop algorithms, which would find
fuel-efficient orbits for scientific space missions. Current
technology can verify the properties of proposed orbits extremely
fast. However, currently there is no good method for finding such
orbits. It rather compares to finding a needle in a haystack,
using very large amounts of computing time.